Prairie Analysis Seminar 2007

Abstract

Prairie Analysis Seminar 2007
November 2007; Kansas State University

This award is to provide partial support for 3 main speakers and about 40 participants to attend the Prairie Analysis seminar to be held November 2nd-3rd 2007 in Manhattan, Kansas.

This will be the seventh annual seminar which is jointly sponsored by the University of Kansas and Kansas State University. This year's seminar will feature lectures on topics in partial differential equations and their applications. These funds will support some of the expenses of the invited speakers and of many of the participants in the meeting.